ADVANCE IT CATALYST: Toward a Transformation of Culture

The University of West Georgia ADVANCE IT-Catalyst project has a unique focus on Master’s institutions that aspire to become more research intensive, and the impact of that transition on the retention and advancement of STEM women faculty. Specifically, this project is characterized by an in-depth examination of institutional policies and practices, and identification of those that may serve as barriers to tenured women faculty. The project is also expected to develop novel mechanisms for supporting and expanding the numbers of senior level STEM and STEM-related women faculty. The outcomes of the University of West Georgia ADVANCE IT-Catalyst project will be used as the foundation for a comprehensive strategic plan that will guide the institution toward sustainable institutional transformation aimed at eliminating the inequities inherent in the current academic culture. A robust dissemination plan, which includes Human Resources personnel, will allow the University of West Georgia to articulate best practices to a wide range of institutions of higher education and contribute to the knowledge base regarding how women faculty can be supported and advanced in similar institutional climates.